Solution and Solid State Chemistry of Homo- and Hetero-Atomic Deltahedral Clusters of Main-Group Elements

The Advanced Materials Program in the Chemistry Division supports this award to University of Notre Dame to develop an understanding of redox potentials, oxidation states and reactivity of elements from Groups 12 to 15, and these groups include metallic, semimetallic or semi-conducting elements. The focus of the research will be solution and solid state chemistry based synthesis of homo- and hetero-atomic anion clusters, and to study the bonding of main group anion clusters based on germanium or Group III-V compounds. A number of neutral nanoparticles or semiconducting thin films will be synthesized, and reactions to produce polymeric materials with extended structures of linked clusters will be studied by Prof. Slavi Sevov with this award.

With this award, negative oxidation states of elements from Groups 12 to 15 such as indium, bismuth, tin, gallium and other related elements will be studied with respect to their bonding, structures, coordination and reactivity of homo- and hetero-atomic anion clusters. Both solution chemistry and solid state chemistry will be followed to synthesize extended structures with linked clusters.